Microcomputer Networks/Operating Systems Laboratory

This project incorporates an integrated microcomputer systems development configuration into an operating systems laboratory. The laboratory is used to teach implementation-oriented courses in intrductory operating systems, advanced operating systems and networks. The equipment that supports this project includes nine Zenith microcomputer systems, three printers, and network hardware to connect to an existing VAX computer system. The project provides students with practical knowledge and experience with operating systems and computer networks, skills that prepare students to function effectively as systems software engineers. This award is being matched by an equal sum from the grantee.